Calculus Reform in Liberal Arts College

Mathematicians from 25 cooperating liberal arts colleges in the Midwest will plan to develop a one year main stream calculus course. These colleges are members of the Great Lakes Colleges Association and the Associated Colleges of the Midwest. Their curriculum will stress: basic concepts; numeric and graphic experiments to better understand the power and limitations of technology; role that calculus played in changing people's world view; art of writing a deductive argument; applied mathematics as a creative modelling process. Outlines of teaching resources to create a lean and lively one year calculus courses will include: sequences of laboratory style problems; textbook type problems for computers/calculators; application modules; open ended problems; and historical vignettes.